A Video Indexing Ontology Using Fuzzy Metadata

A Video Indexing Ontology Using Fuzzy Metadata

Video has been very difficult to understand by a machine. While humans
have a seemingly "direct" way of seeing something and understanding a
scene in terms of background, foreground objects, and motions, video
understanding has been one of the perplexing problems of automatic video
and image analysis to date.

This project proposes a "divide and conquer" approach, where several
hundred general-purpose concepts (e.g., outdoors, animals) will be used
to describe and annotate a very large universe of scenes commonly
depicted in video. Analogously to a limited vocabulary set of indexing
terms one might find in a library card catalog, each video scene can be
annotated through a combination of these concepts ("metadata"). To go
beyond a mere listing of objects, actions and scenes visible in the
video, carefully chosen concepts also allow the description of
relationships between them ("ontology"), which allows for much richer
composite descriptions. The challenge will be to define these concepts
so that they satisfy several criteria at once:
* The concepts must represent things frequently visible in video
broadcasts.
* The concepts must be clearly identifiable to give computer
algorithms a chance to detect them automatically.
* The concepts must be linkable into an ontology that defines how
concepts are related.

Since video annotations, whether done by a computer or a human, always
will contain errors, this work will incorporate probabilistic confidence
metrics ("fuzzy metadata") into the annotation. No existing indexing and
classification schemes have explicitly defined standards for measuring
and reporting errors and omissions of indexing annotations; since
librarians and archivists have traditionally assumed that an index
contains only complete, trusted and verified metadata.

Furthermore, the project will assess to what extent these concepts can
be automatically extracted with state of the art video analysis
techniques. Using footage from documentaries and television news, the
project will perform video search and retrieval experiments to determine
the usefulness of the ontology and the confidence of the annotations.

URL: http://www.informedia.cs.cmu.edu/ontology